RIA: Multiple-Scale Micromechanics of Polycrystalline Piezoelectric Ceramics

9409840 Dunn This Research Initiation Proposal supports a tightly coupled experimental/theoretical program in the linear and nonlinear constitutive response of piezoelectric ceramics. Emphasis is placed on the role played by microstructural-level phenomena which occur at the grain and sub-grain levels and which result in a constantly evolving microstructure which then influences the overall constitutive response. A constitutive model that is thermodynamically sound and which incorporates the micromechanics as internal variables will be developed. ***